Optimal structures of multimaterial composites

Cherkaev
0707974

The investigator determines optimal microstructures and new
bounds for effective conductivity or stiffness of multimaterial
composites. Mathematically, the problem is equivalent to the
relaxation of a multivariable variational problem with a
piece-wise quadratic multiwell Lagrangian. The investigator
studies new sufficient conditions (bounds) and special minimizing
sequences (microstructures). A new technique called localized
polyconvexification is explored that refines the known
polyconvexification procedure by deriving and accounting for new
pointwise constraints on minimizers. A complementary technique
is considered for determining complicated minimizing
laminate-based sequences. Several examples of optimal conducting
and elastic multimaterial structures are worked out; there could
be used for optimal design of multimaterial structures.

The investigator studies how to place several materials of
different conductivity or stiffness in a periodic composite
structure in order to maximize its overall conductivity or
stiffness. In a sense, the problem remains a jigsaw puzzle that
asks to build an optimal mosaic from pieces of different physical
properties. The mosaic can be two- or three-dimensional. Work
on this problem was started in 1963 by the famous paper by Hashin
and Shtrikman. The problem is solved for two mixing materials,
and the suggested novel approach allows to extend the results to
more than two materials. The obtained optimal microstructures
are diverse and unpredictable. The best possible composites from
given components can be used in manufacturing of artificial
materials and structural design. The underlying mathematics,
when developed, should also help to better understand and control
smart materials and phase transitions in solids and similar
phenomena of self-organization in heterogeneous materials.